Teaming to Enable University Research on Hazardous Emissions Through New Instrumentation and Student Internships

This is a one-year planning activity to develop a collaborative working relationship among
research groups at the Georgia Institute of Technology, Louisiana State University, the
Environmental Protection Agency, and SRI International. The objective is the development and
demonstration of a jet-REMPI (resonantly enhanced multiphoton ionization) instrument for
analyzing combustion byproduct emissions that are environmental hazards such as dioxins,
furans, and polycyclic aromatic hydrocarbons (PAHs). Current methods of analysis for these
chemicals in the different and disparate research studies at LSU, GIT, and EPA are very time
consuming, requiring up to a month for a single analysis. In contrast, SRI's jet-REMPI device
can analyze low levels of simple chlorinated hydrocarbons in seconds. Adaptation of this
technique to the research environment will remove a major impediment to progress in several
areas of environmental chemistry.